The Solid-Liquid Interface in Grignard Reagent Formation

With funding from the Organic Dynamics program Professors Garst, Stickney, and Anderson at the University of Georgia will study the mechanism of Grignard formation with particular emphasis on surface effects that occur during the dissolution of magnesium metal as it reacts with various organic halides. This study will help to delineate mechanisms of Grignard reagent formation, provide knowledge about the metal-solution interface and corrosion process, relate Grignard reagent formation to classical theories of corrosion, reveal aspects of the roles of polar solutes, and contribute to a knowledge base that will support rational approaches to both synthetic problems and the problems of the mechanisms of other dissolving-metal reductions. This project will explore how a reactive metal like magnesium reacts with organic halogen compounds to produce a reactive intermediate called a Grignard reagent. In addition, the specific effects that occur on the surface of the magnesium during the reaction will be studied and compared with the corrosion of metals that occurs in commercial products such as cars, boats, and other consumer products.